Algebraic and Geometric Topology

9802386
Dwyer
The investigators are working on a number of problems from algebraic
and geometric topology. Dwyer is extending earlier research on the
homotopy theory of topological groups and on the relationship between
algebraic K-theory and number theory. Taylor is studying smooth
4-manifolds, looking into some algebraic results at the heart of
geometric topology and developing applications of controlled topology
to stratified spaces. Williams is concentrating on Reimann-Roch
Theorems in differential topology, in particular, by generalizing these
theorems to related theories and finding applications of them to
stratified spaces and to curvature questions.
The researchers in this project are concerned with geometry, both
with the behavior of visible shapes and the more mysterious qualities
of higher dimensional configurations. They work on developing
techniques for making spatial calculations, and also on finding
instances in which simple geometrical ideas can clarify other kinds of
mathematics. Some of the specific questions the investigators study
are quite complex, but the fundamental goal of the field of topology
in which they are involved goes back to the Greeks: it is to
understand better the relationship between number and shape, between
quantities that can be manipulated by calculation and the more
elusive spatial forms (of all dimensions) that arise repeatedly in
mathematics and other sciences.
***